Research in Classical and Quantum Gravity

This project investigates a number of issues and problems in classical and quantum gravity and, in particular, Einstein's general theory of relativity.

The goal of work on these topics is to improve the state of knowledge regarding general relativity, gravitation and quantum mechanics, as well as the interaction of these branches of physics.